Oceanographic Instrumentation

9987957
Deering
This award to University of Delaware will provide instrumentation for oceanographic research for use on R/V Cape Henlopen, a research vessel operated by the university as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes an undulating, towed sensor package for physical, chemical and biological studies, which will replace a similar system lost in 1999; in addition, they will acquire a system for monitoring cable out and tension on four winches, as well as a counterbalanced block to assist over-side deployments and a video distribution system for shipboard data. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the western North Atlantic Ocean, during 2000 and future years.
***